Origin of the Mesozoic Yinshan Fold-and-Thrust Belt of Northern China -- An Enigmatic Intraplate Orogen

9903012
Davis

Intercontinental fold and thrust belts located far from subduction zones or collisional sutures present puzzles for plate tectonics theory. The Yin Shan fold and thrust belt of northern China is 1100 km long and trends east-west across the North China plate. Recent work has revealed the presence of major thrusts and a series of compressional episodes during mesozoic time. This project will continue investigation of the geometry, kinematics and timing of Yin Shan belt development in two transects. Results are aimed at a test of whether or not severe intraplate deformation can develop independently of external plate interactions.